Fatty Acid Metabolism of Yeast (S. Cerevisiae): Fatty Acid Synthase and Acetyl-CoA Carboxylase

Fatty acid metabolism, especially the biosynthesis of long chain fatty acids in eukaryotic cells, is the focus of our research. In this project we plan to study the mechanism of action and structure-function relationship of the fatty acid synthase and acetyl-CoA carboxylase of the yeast Saccharmyces cerevisiae. For the synthase, the entry of the substrates, acetyl and malonyl groups, and the role of the transacylases in the process of chai elongation will be investigated. in these studies we plan to establish the order and kinetics of transfer of the B-ketoacyl derivative. Synthase from yeast mutansts defective in acetylk transcyclase activity or lacks 4'-phospopantetheine will be used in these studies. Foir the carbozylase we will determine thr organization of the partial activities on the subunit protein as well as the site of biotim attachment. Also, we plan to continue our studies of the structure ans properties of the synthase abd carbioxylase genes. The avcailability of these genes will make it possible for functional studies of the protins altered by site-directed mutagenesis. The genes or DNA fragments derived therefrom will be inserted inframe in special vectors, expressed in appropriate hosts and thge proteins produced will be characterized and usled in reconstitution studies. Cloning will be an exceptionlly poerful oapproach to understanding the physiological revelance and structure- function relationships of these complex multifunctional proteins.